Role of Additive Interactions in Lubricant Performance

Petroleum derived base oils incorporating suitably designed additive packages dominate the lubricant market. Individual additives are chosen on the basis of their ability to reduce the thermal and oxidative degradation of the base oil, to protect the lubricated surface from wear, to inhibit rust and corrosion, to reduce or prevent deposits and to impart other desirable properties to the base oil. The additive interactions in bulk oil give rise to the formation of intermolecular complexes, and micelles. Molecular thermodynamic method is utilized in this research to predict the various structures existing in oil as a function of the composition of the oil, the concentrations of the various additives and the system temperature. Kinetic models for the oxidation of oil and deposit formation are formulated incorporating the fact that additives occur in various types of structures in the base oil. The kinetic models allow the calculation of the lubricant performance indices - namely the induction times preceding oil oxidation and deposit formation as well as the rates of oxidation and deposit formation. The calculated results are to be compared with experimental data on bulk solution behavior.